Chemical Applications of Lasers Short Course

The one week workshop on lasers and the application to chemical problems is providing exposure to laser technology for 12 chemistry faculty. The workshop is focussing on intensive exposure to both the theory and practical application of laser technology to areas of interest to all branches of chemistry. The course includes lectures on the fundamentals of lasers and related topics; laboratory experiments to illustrate the principles presented in the lectures; lectures and laboratory experiments dealing with current applications of lasers to chemically interesting problems; and an opportunity to engage in a special project of interest to the participant. The technology is being transported to the participant's home institution.